RUI: Nature of Spacetimes with Mild Singularities or Cauchy Horizons

A theoretical study will be undertaken of gravitational models called
spacetimes which contain two kinds of boundaries: mild singularities,
defined by particle paths which end abruptly, and Cauchy horizons,
defined as the stopping point for the equations which describe the
model. The research will have three thrusts. The first will be to
study the behavior of quantum particles in the vicinity of the
spacetime singularities. The second will be to extend a
previously-developed conjecture into the stability of singularities and
Cauchy horizons. The last will be to study the mathematical
structure of spacetimes with certain unusual singularities.

The mathematical models used are based on Einstein's theory which describes
gravitation, one of the four basic forces of nature. It is therefore
important to understand both the mathematical structure and predictions
of this theory. Since basic theorems predict the existence of
singularities in Einstein's theory, it is important to study the
nature of these singularities. Therefore, Prof Konkowski has chosen
to study spacetime solutions to Einstein's equations which possess the
most pathological types of singularities. In particular, spacetimes are
studied with mild singularities and Cauchy horizons. This study should
lead to a more thorough understanding of general relativity and its
models of the gravitational effects of physical objects.